PDE analysis of thin liquid films: Steady states, long-time behavior, and blow-up

This award will support the PI's studies of mathematical models
for thin films of viscous liquids. A characteristic
feature of these problems is that there is a competition between
different physical effects, such as gravity and surface tension.
Specifically, the partial differential equations that describe the
thin film evolution equation have both linearly stabilizing terms (from surface
tension) that lead to smooth film profiles and terms (from gravity, for example)
that destabilize long length scales. The models thus exhibit a finite band of linearly
unstable modes, leading to interesting steady states or long-time
dynamics and to new finite-time singularities. These models will
be studied with analytical, numerical, and asymptotic techniques.

Pattern formation in fluid films is very familiar. For example, when a liquid
is spilled on a table, what determines the size, distribution, and shape
of the droplets that form? How does the composition of a paint affect
the irregularities that form when it dries? What properties of an
inhalant will allow it to spread most effectively on lung tissue?
In all these situations there is a competition between "smoothing"
and "roughening" physical effects. These effects are often unavoidable and
typically lead to the formation of persistent or transient patterns. The
award will support mathematical work on the formation and development
of such patterns in thin liquid films. Understanding such phenomena is of
mathematical and scientific interest, as well as of engineering, industrial,
and medical use.